Shipboard Scientific Diving Project

The American Academy of Underwater Sciences is a self regulating organization of active diving scientists. The organization provides consensual, operational and management guidelines for the implementation and conduct of scientific diving operations. The Academy's objective is to promote safe diving procedures for scientific divers using state-of-the-art technology and techniques. The AAUS will provide the UNOLS vessel operators with the technical infra-structure and expertise to assist the scientific diving community in the review of diving procedures, provide guidelines for establishing diving safety regulations, provide expertise on diving accidents, state-of-the-art technology and forums on new techniques.